The Sixth North American Masonry Conference to be held at Drexel University in June 1993

This project is to develop and convene the Sixth North American Masonry Conference (6NAMC) in June 1993. The three day meeting will provide a forum for the exchange of information and ideas on topics related to masonry behavior, design, and construction. Participation at the conference will be open to researchers as well as educators, practicing engineers, architects, manufacturers and contractors. This conference will also provide a unique opportunity to exchange information related to masonry with international researchers and design professionals.